Mechanized Code Proofs Based on a Formal Microprocessor Specification

The propose is to build an experimental software system to test the feasibility of mathematically formalizing physically realizable microprocessor architectures and to test the feasibility of mechanically checking the correctness of system software written in microprocessor machine language for such microprocessors. Although in principle such formalization and checking are possible, they are widely suspected to be practically infeasible. However, a few recent experiments do demonstrate that a new approach of directly formalizing a machine architecture as a mathematical function in a mechanized logic offers promise. A substantial fraction of a commonly used processor has been formalized and several machine code programs have been rigorously checked mechanically. The initial prototype of the system will be used (a) to test the feasibility of proofs of compiler correctness and (b) to explore the development of a formalized programming environment for system software, with focus on such issues as formalizing memory management and rigorously demonstrating performance figures. The experiment will involve formalizing, in a mechanized logic, the user instruction set of several commonly-used microprocessors, and will also involve formalizing the semantics of some system traps. The work will explore new areas in formalization, including cache consistency, memory protection, and interrupts. The machine architecture issues of proving correct high level language compilers. will also be explored.